Project TEACH II -- Teacher Education Alliance of Colleges and High Schools to Instruct and Inspire

This is a project to build upon an earlier NSF funded program Project TEACH I that focused on pre-service education. It is a collaborative effort of the Green River Community College, Central Washington University, and six school districts in the Green River area. This project is expanding those efforts to include in-service training for current and future teachers, creating a communications center for coordinating teacher training efforts, and increasing the recruitment of talented future teachers. Project Teach II is strengthening the existing pre-service teacher training and recruitment programs by implementing research-proven activities that integrate pre-service and in-service training. It also strengthens the interplay of education and industry by providing a forum for local businesses to participate in teacher training.